ITR: COLLABORATIVE RESEARCH: Towards a Seamless Process for the Development of Embedded Systems

Pnueli, Emerson, and Sistla
CCR-0205571, CCR-0205483 and CCR-0205365
"Towards a Seamless Process for the Development of Embedded Systems"

Embedded systems are of vital economic importance and are literally
becoming ubiquitous. They have already become an integral component of
safety critical systems involving aviation, military,
telecommunications, and process control applications. Interest in
embedded systems is growing further due to the expectation that they
will become a key component of many commonplace consumer appliances.
Consumers will expect levels of reliability and predictability
associated with the very best brands of cars, televisions, and
refrigerators. Glitches, crashes, and general erratic behavior of the
sort seen with prior generations of consumer PC software products will
be unacceptable for these embedded applications. It thus becomes
crucial that these embedded software systems satisfy high levels of
correctness criteria, well above those of today's large software
systems, which are often highly error-prone.

Besides the requirement of a new standard of functional correctness,
embedded systems pose additional challenges which were not fully
addressed by previous validation and verification approaches. These
include adequate guarantees of timeliness, low or controlled power
consumption, and low or controlled memory utilization. With the
spread of embedded systems, and the need to guarantee an acceptable
level of functionality and reliability of the applications they are
embedded in, the industry needs an effective and reliable development
process. Due to market constraints, such a process should also support
a fast turn-around time as well as enable the easy design of many
customized variations of the same product.

This project is developing the foundation for a seamless design
process for embedded systems as described below. In particular, it is
developing:

A formal visual language for requirements, including behavioral,
temporal, and TPM constraints;

A methodology for the automatic synthesis of an executable
specification from the requirement specification language;

A methodology for the verification of the intermediate and
distributed representation of the systems against requirements;

A methododology for automatic code-distribution of
specifications, possibly with some architectural constraints
provided by the user;

A model for representing hardware/software co-design
platforms that enables modeling of both loosely- and tightly-coupled
components as well as compositional reasoning about them;

Algorithms for automatically generating
architecture-optimized code from executable specifications;

Methods for translation validation of the
generated code and run-time validation on the system using
monitors;

The Design of a profiler process which analyzes machine code,
computes the resulting figures for time, power, and memory, and
back-associate these figures with their executable specification
sources, enabling early-stage analysis of these requirements.

The impact of the project is to streamline and significantly
accelerate the time to market of embedded applications of both new
products and revisions and customizations of existing product lines.
Another impact is to upgrade the level of dependability and
predictability of embedded software to new standards, compatible and
comparable to those expected from the best brands of consumer
products.